Summer Undergraduate Research Followship in Oceanography

This award supports a Research Experience for Undergraduate(REU) Site proposal to provide research experiences for selected undergraduates with a special emphasis on physical oceanography. It will acquaint the students with the excitement and opportunities of academic research and encourage them to pursue graduate studies and a career in ocean sciences.